Collaborative Research: Portal to Current Research: Life in Extreme Environments

In this Communicating Research to Public Audiences (CRPA) project, the University of Washington and the Pacific Science Center (PSC) are highlighting the results of Dr. Kelley's active research discoveries about deep-sea life located on active hydrothermal vents of the ocean floors (OCE-0426109). The STEM content of this project includes oceanography, marine biology, and ecology. The project team will develop a multimedia, interactive kiosk exhibit that builds on the existing Portal to the Public project at PSC. Kelley's graduate students are actively involved in the exhibit and outreach components.

The target audience for "Life in Extreme Environments" is the approximately 800,000 U.S. and international visitors to PSC, including a significant number of urban, underserved minorities. This CRPA project will become a component of the existing Portal to the Public exhibit. This exhibit kiosk will subsequently be made available to other scientists to promote research and related topics in their respective disciplines. The exhibit will be fabricated and evaluated by PSC staff.